SGER: Continuous Monitoring of the Global Atmospheric- Electric Circuit

The objective of this research is the demonstration of the practical validity of measuring electric potential in the atmosphere using several kites attached to a common tether. If this technique is successful, a simple and relatively inexpensive method will be available to monitor continuously electric potential and, by inference, that of the earth.ionosphere system. The measurements will be conducted on Christmas Island, Republic of Kiribati.